Curriculum Reform of the Mechanical Engineering Program at City College

PROPOSAL NO.: 0229381
PRINCIPAL INVESTIGATOR: Delale, Feridun
INSTITUTION NAME: CUNY City College
TITLE: Curriculum Reform of the Mechanical Engineering Program at City College

Abstract

This project plans for the systemic reform of the mechanical engineering curriculum at the City College of New York. Building on our previous experience in educational projects, five current members of the Mechanical Engineering Faculty and a current and former Associate Dean will spearhead the planning process.

The purpose of the plan will be to develop means for achieving the following objectives:
a) Integration of emerging technologies into the curriculum. These technologies include
micro-electro mechanical systems (MEMS), nanotechnology, biotechnology, new
application of materials, intelligent systems, and advanced computer aided engineering
software b) Reform of pedagogical methods by introducing the results of cognitive
research, industry needs and technological literacy concerns into the design of the
learning environment c) Consistency of instruction by formulating department policies on
expectations, responsibility, ethics, homework, report writing and team work d) Issues
related to retention, timely graduation and greater enrollment of women and e) Broader
impact of the reform effort and dissemination of results.

The planning activities will be carried out by involving the Department's stakeholders,
namely: faculty (including adjuncts and graduate teaching assistants), students and
employers. After gathering the views of all the stakeholders, each course will be analyzed
to determine a strategy for implementing the proposed changes. A report detailing the
curriculum reform plan will be prepared. The report will also include a plan for
evaluation of the implementation phase of this effort.